Proof-of-Concepts Study of Piezoceramic C-block Actuators

9522737 Brei This Research Planning Grant is to evaluate the concept of C-block piezoelectric actuator design. C-block actuators are curved composite beams with at least two layers of piezoelectric materials which have the potential for generating larger forces and orders to magnitude more deflection than equivalent polymeric stacks. This project will design, build and test a C-block actuator for both its static and dynamic performance. Such actuators have applications in the aerospace, automotive, health and rehabilitation, and manufacturing fields. ***